Summer Seminars on Teaching Introductory Physics Using Interactive Methods and Computers

The project is enabling introductory physics teachers to develop the instructional, computing and laboratory interfacing skills they need to help their students learn physics by using the computer in the exploration of real world phenomena. A two-week seminar is being offered in the summer of 1991 for thirty college and university teachers and will be repeated in the summer of 1992 for thirty more undergraduate teachers. Participants will remain in contact with one another and with the seminar instructors via a BITNET teleconference during the academic year after each seminar is conducted. Topics covered in the summer seminars include: interactive instructional strategies based on outcomes of educational research; computer interfacing; use of spreadsheets and graphing packages; data and error analysis techniques; the application of laboratory interfacing and real time data analysis to lecture demonstrations; and numerical problem solving and modeling.